Proposal for Partial Support for US Scientists to Attend the 4th Rencontres Du Vietnam Conference

These Proposal requests funding to support US graduate students and post docs to attend a High-Energy Particle and Astrophysics Conference in Vietnam this summer.